Internships in Parallel Computing

A pilot internship program in parallel computing is proposed for university faculty and post-doctoral researchers. The objective is to have a one-year postdoctoral participant and a five month senior participant in the pilot program. These researchers would have the opportunity to master techniques and to conduct research in parallel computing. Both participants would be encouraged to work closely with Argonne computer scientists who are experts in parallel computing. The participants will learn about various debugging tools and performance measurement techniques available for parallel programs, study languages used to program multiprocessors, and work on the design of algorithms to exploit parallelism. We would expect the senior person to have a well defined research project in mind with the expectation of completing computational results on some of the parallel machines in the Advanced Computing Research Facility at Argonne. We would expect the postdoctoral participant to review the wide range of applications being carried out on multiprocessors, and to propose and work on his or her own new applications. Of course, the participants will have hands-on experience with a variety of differnet advanced-computer architectures. The proposed internships will provide an excellent opportunity for university members to acquire knowledge and experience in the area of parallel computing and to conduct research on state of the art equipment. We are helpful that the internship program will attract faculty members who wish to kkep abreast of new technologies, both for their own research and for the benefit of their students. ---------------------------------------------------------------- The revised budget for the proposal reduces the requested amount by eliminating ANL staff costs, by decreasing the number of participants and by reducing the direction of the project from three years to one year. In its present form the proposal represents a pilot internship program for one senior and one junior researcher. If this program is successful, it would be expanded to include new participants.